Synthesis of Novel Porphyrinoids by the "3 + 1" Approach

The focus of this research, carried out in an undergraduate setting, is the development of synthetic methodology for the preparation of porphyrins and porphyrinoids. The `3 + 1` method, wherein a monocyclic dialdehyde is condensed with a tripyrrolic structure, will be used to gain a wide range of structural variation. The scope of the protocol will be explored with the goal of producing a number of new and novel compounds. With this renewal Research in Undergraduate Institutions award, the Organic and Macromolecular Chemistry Program is supporting the research efforts of Dr. Timothy D. Lash of the Department of Chemistry at Illinois State University. In collaboration with his undergraduate participants, Dr. Lash will focus his work on the preparation of substituted porphyrin and porphyrinoid structures. The chemistry and spectroscopic properties of the the latter will be insightful and there the possibility exists that practical applications could ensue